Proposal Processing and Data Entry Support for the Digital Libraries Initiative-Phase 2

This award is to provide the Division of Information and Intelligent Systems (IIS) the use of Friday Systems to perform support services related to the NSF program Soliciation "Digital Libraries Initiative - Phase 2 (NSF-98-63.